Measurement of Ground State Correlation Effects on the Pair Correlation Function of Atoms and Molecules by X-Ray Scattering

Peter Lykos and Russ Bonham are supported by the Theoretical and Computational Chemistry Program to perform experimental meaurements of pair-correlation functions of atoms and molecules at the Advanced Light Source at Argonne National Laboratory. Their collaborative effort will also include a theoretical treatment to extract from the observed pair-correlation functions the electron-electron repulsive potential energies. This latter quantity is a sensitive measure of electron correlation, and thus this research will provide a set of benchmarks against which new quantum chemical electron correlation treatments and basis sets can be tested. At the core of all quantum chemistry computations are the twin choices of basis set and electron correlation method. With the remarkable increase in computational power in the last decade, calculated total energies of atoms and molecules approach those obtained experimentally. To further improve our understanding of basis set design and approximate correlation techniques in quantum chemistry, more precise benchmarks are necessary.